General Purpose Process Migration

PI: Partha Dasgupta

The process migration problem has received a lot of attention but has
produced only mixed results. Traditionally, migration mechanisms have
been used to balance the load among processors in a distributed
system. However, most mechanisms proposed to date for general-purpose
applications have required extensive operating system kernel
modifications. Hence, conventional wisdom has held that the costs of
process migration are not justified by resulting benefits. This
research takes a new look at process migration, recognizing both its
utility for an increasing number of emerging applications that can
tolerate higher overheads, as well as the possibility of implementing
necessary mechanisms using novel user-level techniques. Process
migration enables a host of capabilities such as mobility,
collaborative work, distributed systems management, automatic
reconfigurability, and fault-tolerance. Moreover, API interception
technologies, which permit insertion of arbitrary functionality in the
execution path of an application's interactions with the underlying
operating system, enable process migration to be implemented without
kernel modification. This research investigates a virtualization
scheme that decouples an application from dependencies in the
operating system and the physical environment. Virtualization also
monitors and controls the interactions and the resulting side effects
between processes and operating systems, making process migration
possible.